Algorithmic Problems in Haplotyping, Oligonucleotide Fingerprinting,and NMR Peak Assignment

Biological and biomedical sciences are undergoing a major revolution
as new experimental approaches, such as high-throughput DNA
sequencing, DNA microarray, whole genome location, and
single nucleotide polymorphism (SNP) techniques, are yielding
unprecedented amounts of genetic data. The exploration of this
information is critically dependent upon the development of
advanced computational methods for data analysis. Since the recent
completion of the Human Genome Project, the focus of Computational
Biology (or Bioinformatics) has shifted to topics that are more
directly related to biological functions, i.e. computational problems
that arise in functional genomics and proteomics.

In this project, the PI will study some new algorithmic problems
that aim at addressing three important questions in
computational biology: (i) how to infer haplotype configurations from
genotype data based on the Mendelian law of inheritance for a given
pedigree, (ii) how to resolve missing values in cluster
analysis for oligonucleotide fingerprinting, and (iii) how to
assign NMR peaks to individual amino acids. The first question is
fundamental to the fine-mapping of genetic diseases
using markers such as microsatellites and SNPs.
Question (ii) arises in the analysis of discretized oligonucleotide
fingerprints from DNA array experiments and has important applications
in the classification of microbial communities. Question (iii)
represents a crucial step in NMR-based protein structure determination.

Although the above algorithmic problems are relatively new in the
literature (in fact, some of them were recently introduced by the PI
in collaboration with experimentalists), they have strong ties to
well-known combinatorial optimization problems such as bipartite matching,
interval scheduling, graph clique partition (or coloring), and set cover.
Therefore, their solutions could also be of interest to the general
algorithms and combinatorial optimization communities.